RUI Collaboration: Quantitative Modeling of Bose- Condensed Atomic Systems

The research focuses on the quantitative modeling of Bose condensed, trapped atomic systems. Analytic and numerical techniques examine the effect of the geometry of the trap, the kinetics of condensate formation, the nature of the phase transition and the effect of particle correlations.